Development of a wideband digital spectrometer for the upgraded Haystack telescope

AST-0618401/Salah, NEROC

A flexible and versatile wideband digital spectrometer to be used with the upgraded Haystack 37-m radio telescope will be developed and used for focused science projects and for educational research by graduate and undergraduate students. The Haystack 37-m radio telescope is currently undergoing a major upgrade involving the installation of a new antenna with 0.1 mm surface tolerance. As part of the upgrade, a new wideband low-noise radiometer operating in the band 85 - 115 GHz is being constructed using modern detector technology. In order to fully exploit the new antenna and radiometer capabilities, this work will cover the development of a backend system to process spectral line observations with multiple wideband line coverage.